Mathematical Sciences: Sparse Matrix Problems: Data Structures, Algorithms, and Applications

Davis This project addresses a range of sparse matrix problems, from data structures, to algorithms, to applications. The unifying theme is the unsymmetric-pattern multifrontal method: its implementation, data structures, and applicability to difficult sparse matrix problems in semiconductor device and process simulation. The unsymmetric-pattern multifrontal method encompasses both the multifrontal technique and an approximate degree update algorithm that is much faster (asymptotically and in practice) than computing the true degrees. Although this method uses upper bounds, the ordering quality for both the unsymmetric (Markowitz cost) and symmetric (minimum degree) algorithms does not suffer. The investigator and his colleagues develop parallel factorization and ordering algorithms based on these approaches. They also develop parallel memory allocators (a fast-fits algorithm), a dynamic task graph (dynamic, since the pivot ordering determines the task dag), the development of both pessimistic and optimistic synchronization methods for frontal matrix ``collision'' in the combined uni/multifrontal approach, and other distributed data structures (such as a distributed priority queue for finding pivots of low approximate degree) required for these algorithms. The algorithms and data structures they develop are applied to semiconductor device and process simulation. This is a challenging application, placing a burden not only on the numerical factorization, but on the symbolic ``overhead'' as well. The problems in this domain are based on irregular, adaptive grids (both 2D and 3D). Both direct methods and iterative methods are used. The iterative method used is a preconditioned biconjugate gradient algorithm, with an incomplete LU factorization as the preconditioner. The investigators develop and employ an incomplete multifrontal factorization algorithm, and a multifrontal-based approach for computing the sparse inverse for use as a prec onditioner. The parallel methods the investigators develop are widely applicable to many computationally intensive problems, in particular the modeling of complex physical phenomena: structural stress and fluid-flow in and around the space shuttle, thunderstorms and tornados, circuits and semiconductor devices, the mixing and combustion of complex turbulent reacting flows, the flow of oil in a reservoir, the optimal distillation of gas and petroleum products, and so on. Parallel sparse matrix algorithms and the data structures they require can help to solve these problems. Where will a tornado hit? How fast can you make a CPU chip run? How can automobile emissions be reduced and gas efficiency be increased at the same time? How do we get more gas out of the same amount of crude oil, and how do we get more crude oil out of an oil reservoir? Answering these questions accurately requires a great deal of computation - and much of that computation involves large, sparse matrices. High-speed computation is required - it does no good to predict where a tornado will hit after it has already passed by and done its destruction. Thus the need for parallel algorithms and data structures. The methods the investigators develop are made widely available to researchers in these and other areas. To ensure that the methods are in fact useful for ``real world'' problems, they are incorporated into a widely-used semiconductor simulation package, the Florida Object-Oriented Device/Process Simulator (FLOODS/FLOOPS). FLOODS/FLOOPS is in use in dozens of companies and universities, and its methods form the basis of many commercial semiconductor simulation packages.